Production of High Performance Spatial Light Modulators (SLMs) Using Multiple Quantum Well and Related Technologies

WPCD 2 B V P Z Courier 10cpi ? x x x , Õm x 6 X @ 8 ; X @ HP LaserJet Series II HPLASEII.PRS x @ , t 0 OpX @ #| x 2 B 9213775 Jain This grant is to investigate MQW SLMs utilizing heterostructure acoustic charge transport (HACT), enhanced birefringence, and Bragg diffraction based SLMs. The emphasis will be on their relative suitability to the industrial production environment. In the case of HACT SLMs, the project involves the merger of HACT technology, developed at United Technologies Research Center (UTRC) for micorelectronics signal processing applications, with the novel MQW SLM designs conceived at the University of Connecticut. The demonstration of technical feasibility will be followed by the production of proposed devices by industries in Connecticut.